PCR Laboratory for Undergraduate Teaching of Molecular Biology/Biotechnology

The equipment purchased (thermal cycler, a tissue culture enclose and a microcentrifuge) supports the use of PCR technology in a variety of laboratory classes recently introduced within a newly instituted B.S. degree program in Molecular Biology and Biotechnology. The program provides a link between the worlds of research and secondary education. Classes affected include Genetics, Biotechnology I and II and Immunology.